Measurement and Prediction of Parallel Program Performance

The goal of this research is to develop a set of tools and techniques for performance analysis and tuning of parallel programs that bridges this gap between measurement and modeling, and theory and practice. The approach to performance measurement and modeling is called "lost cycles analysis", and is based on the observation that the distinction between productive computation and parallel overhead is useful both for performance diagnosis and for performance prediction. This approach decomposes all parallel overhead into mutually-exclusive, yet comprehensive categories (such as load imbalance and communication overhead), each of which can be measured and modeled separately. These categories express overheads in common units, called "lost cycles", and together represent the portion of the total execution time not devoted to useful computation. This research effort's goal is to build a lost cycles toolkit, integrating empirical model-building techniques from statistics with the measurement and modeling techniques of lost cycles analysis to generate accurate models of application performance. The toolkit will use a priori knowledge of the sources and characteristics of overhead in parallel systems to guide and constrain the modeling process. It will incorporate techniques for optimum experimental design into an experiment generation tool that will generate a "script" of representative program executions. During these executions it will use a measurement tool to record the lost cycles for each overhead category as a function of the variables of interest (including, but not limited to, the number of processors and the problem size). It will use the measurement results obtained from the executions to select from a database of standard models for overhead categories. In addition, it will use a tool for fitting models of overhead categories to experimental data to establish the constants associated with a particular hardware and software system. By automating perfo rmance modeling as much as possible, this effort intends to make lost cycles analysis practical for everyday use by parallel programmers. ***